Lanthanide-lipids as MR Biosensors and Probes for Focused Ultrasound Surgery

Lanthanide-lipids as MR Biosensors and Probes for Focused Ultrasound Surgery
Mark Borden, University of Colorado, Boulder. CBET - 1133687

Intellectual Merit: Lipid-coated microbubbles are being developed as cavitation nuclei to target micro-scale structures in focused ultrasound surgery (FUS). While magnetic resonance imaging (MRI) is useful for monitoring macroscopic temperature changes during FUS tissue ablation, it currently is incapable of detecting cavitation. An MRI cavitation probe is, therefore, needed to increase the precision and control of FUS. A possible candidate was discovered during a recent study to elucidate the mechanism of microbubble-mediated FUS opening of the blood brain barrier for targeted drug delivery. In that study, microbubbles were labeled with the paramagnetic lanthanide ion Gd(III) in order to image them with MRI. Surprisingly, it was found that intact Gd-microbubbles failed to enhance proton relaxation, whereas fragmented Gd-microbubbles strongly increased relaxivity in a dose dependent manner. Thus, the effect of Gd(III) ions on proton relaxation increased as the lipid membranes to which they were bound transitioned from monolayer shells of intact microbubbles to bilayer cavitation fragments. This fortuitous discovery revealed a possible biosensor of lipid membrane phase transitions.

The goal of the proposed research is to test the hypothesis that the proton relaxation enhancement of lipid-bound Gd(III) ions increases as the underlying lipid membrane expands and consequently increases the transfer of water molecules between the bulk and the inner shell of the paramagnetic ion. This hypothesis will be tested by measuring the longitudinal and transverse proton relaxation rates for Gd-liposomes and Gd-microbubbles as a function of (1) temperature, (2) lipid composition and (3) spacer length between the Gd(III) ion and the underlying lipid. Results will reveal the effects of lipid thermal fluctuations by probing bilayers vs. monolayers, lipid phase transitions and polymer tethers.

Broader Impacts:

Lipid-coated microbubbles are being developed as cavitation nuclei to target micro-scale structures in focused ultrasound surgery (FUS). A discovery in the PI's laboratory reveals a possible biosensor of lipid membrane phase transitions. A MR biosensor of lipid membrane thermodynamic transitions could be useful for a wide range of biological studies including the design of biocolloids for medical applications. These applications may include focused ultrasound surgery.

An education plan is proposed to develop a biocolloid engineering track in the department of Mechanical Engineering at the University of Colorado, Boulder. Research and coursework within the track will emphasize the importance of materials and surface engineering for the design of biocolloids for medical applications. The track will serve underrepresented minorities in the Denver metro area through outreach programs in collaboration with the Broadening Opportunities for Leadership and Diversity (BOLD) center in the college of engineering and applied science. Students will construct artistic renderings to demonstrate the physics underlying the phenomena observed in the course of this research. The demos will be used to promote science education through participation in BOLD K-12 outreach initiatives.